Singular and Boundary Control of Multidimensional Diffusion

9705017 Taksar The proposed research lies within the area of optimal stochastic control. It deals with optimal control of diffusion processes by means of a free boundary as well as optimal control at a reflection boundary of the stochastic process. This type of control naturally appears in the problems in which there is no natural restriction on the rates of control and the optimal control rates are infinite. (This type of control model serves also as a good approximation for the situations when the rates are bounded but very large.) The optimal policy is then to reflect the process from an a priori unknown boundary. Natural models where such type of action arises are related to the problems with additive input, where there are no a priori limits on the control rates or as an approximation for the problems with optimal policy of a "bang-bang" type. The proposed research consists of developing the theory of the related PDE with gradient constraints, studying optimal reflecting barriers in multidimensional cases, and applying the results to different mechanical, manufacturing and financial models. This research should provide a sound theoretical base for developing optimal control algorithms for an automatic cruise control of a missile subject to uncertain wind conditions or a space vehicle subject to small perturbations in mechanical units. The developed technique will enable one to calculate the position when the maximal correction force should be applied as well as the optimal direction of this force. At the "ground level" this theory will give a tool to derive optimal inventory levels for complex flexible manufacturing systems as well as optimal timings for changes in the manufacturing processes. In the financial world this theory will provide a method for finding optimal levels of funds for financial companies whose assets are subject to random fluctuations. For example, in the case of a large insurance company whose liquid assets are constantly fluctuating due to uncertainty in the times and amounts of incoming claims, it will be possible to calculate the optimal level of the reserve which should be maintained in order to have the optimal balance between the risk and profit potential.